EAGER: Tensor500: A Streaming Analytics High Performance Computing Benchmark

Large-scale data analytics is essential to the National Strategic Computing Initiative (NSCI) and NSF's scientific discovery mission. Data-intensive supercomputing applications are increasingly important for handling high-performance computing workloads. However, current benchmarks and performance metrics do not provide useful information on suitability of computing systems for data-intensive applications. This project will develop a new benchmark that can be used to assess the performance of new system implementations aimed at this important class of applications.

The research effort will produce a new Stream500 benchmark, complementary to Graph500, that replicates streaming analytics workload. The current benchmark capabilities will be expanded by enabling the exiting web-based infrastructure to accept submissions for multiple benchmarks.